Diffusion and Kinetics of Reaction Models: Theory and Selected Applications

Research will be conducted into models of diffusion-limited reactions and
the method of empty intervals which we introduced originally for the
treatment of coalescence, A + A -> A. We have extended the method of
intervals to annihilation, A + A -> 0, the branching- and double
branching-annihilating process, and the q-state Potts model in the T=0 limit.
The method yields detailed information: we derived explicit expressions for
the n-point correlation functions of coalescence and annihilation, for all n.
Different research groups have recently adopted the method of intervals for
the analysis of models not amenable to the complementary method of free
Majorana fermions.

Research will be conducted into several abstract open questions, including
the kinetics of reactions with anomalous, subdiffusive transport; exactly
solvable models of nonuniversal kinetic phase transitions; and the shielding
effect in coalescence, as a basis for more exact solutions and for novel
approximation methods.

Research will be conducted also into a number of practical questions motivated
by our work so far. These include: (1) A new method, due to Fokas, for
solving PDEs in convex domains with arbitrary boundary conditions; (2) Speedy
computer algorithms for the simulation of reaction-diffusion systems;
(3) Stability of networks, such as the Internet, in the face of random failure
or a coordinated attack; (4) Mechanisms of signal transduction in eukaryotic
cells; and (5) Statistical physics interpretation of various experiments in
contemporary chemistry.

The project is particularly well-suited for educational purposes. One student
has completed a M.Sc. in physics and another is graduating with a Ph.D.
degree. Several undergraduate students have already been involved (mainly with
computer simulations), and their effort has resulted in at least three
publications in refereed journals. We forsee many more opportunities for
students involvement.